RUI: Three Body Resonances in Muonic Molecular Ions (Physics)

The muonic molecular ions having He as a nucleus do not form bound states. However, their resonant states play a role in muon catalyzed fusion. They are considered scavengers of muons. At very high densities these resonances may enhance the stripping of muons from muonic He when its kinetic energy has been slowed down after (dt) or (dd) fusion. Quantitative investigation has been slowed down because very little is known about these resonances. A variational method, developed for the accurate determination of the (dt) bound state properties, is well suited for studying these resonances. Excellent resonance energies and widths have already been computed for a number of resonant states of (dt)+ below the n=2 threshold of (d) and (t). Preliminary calculations indicate the existence of similar resonances in (.d)++ and (3Hed)++. The proposed research will provide accurate positions, widths and other properties of all these resonances.